The Arabidopsis SNI1 Complex Regulates Both Gene Transcription and DNA Recombination During the Defense Response

Systemic acquired resistance is an immune response in plants that confers long-lasting resistance against a broad spectrum of pathogens. It is controlled by NPR1 and SNI1, which serve as the "on" and "off" switches for expression of proteins with antimicrobial activities, respectively. Pathogen infection also triggers an increase in DNA recombination to generate new traits for better adaptation to the selective pressure. The investigators of this project identified several additional proteins affecting both antimicrobial gene expression and DNA recombination and showed that they physically interact with SNI1. Through this project, these investigators will apply molecular genetic and genomic approaches to study the SNI1 protein complex and elucidate how this complex regulates both gene transcription and DNA recombination during plant immune responses. This project pushes the boundaries between studies of plant defense-related gene expression and chromosome structure and function in all higher organisms. For example, one of the proteins of interest is BRCA2, which is associated with familial breast cancer in humans. But the molecular function of BRCA2 is not well known. Studies of BRCA2 function in plant defense may shed new light on how this protein functions in general. The success of this project will also have a significant impact on agriculture in controlling crop disease and benefit the efforts to project the environment. The broader impacts of this project also include excellent training opportunities for postdocs, graduate and undergraduate students in molecular genetics and genomics. It will allow the principle investigator of the project to continue serving as a mentor in a program for minority undergraduate summer research and a panelist in the University Women in Science and Engineering program.